The Research Ambassador Program: Empowering Scientists to Communicate Research to Public Audiences

This project will develop a "Research Ambassador" program whereby a small cadre of scientists will be trained to communicate rain forest canopy ecology to underserved public audiences in the northwest U. S. and elsewhere. A set of collaborating academic researchers and informal science educators will draw from successful dissemination experiences in the field of forest canopy studies. An interdisciplinary research/education team will recruit six "research ambassadors" and provide tools to help them effectively speak and write directly to the public. The team and the ambassadors will create dissemination materials for each ambassador, and contribute to a canopy research website for public audiences. In addition to communicating research to public audiences, this project will provide innovative connections between science and society that can present pragmatic solutions to problems of scientific communication to the public.